Nonstandard High Order Multigrid Techniques with Applications to Laminar Diffusion Flame Simulations

This project will design efficient geometric multigrid methods using
intermediate grids to solve convection diffusion problems discretized
by high order compact schemes. The use of intermediate grids aims at
reducing discrepancy between the solutions obtained on different
grids. Symbolic computation packages will be used to derive a fourth
order finite difference scheme on the intermediate grids. Special
relaxation schemes and intergrid transfer operators will be developed.
The nonstandard multigrid method with high order discretization
schemes will be used in the numerical simulation of laminar diffusion
flames. The use of intermediate grids is expected to alleviate the
problem haunting existing multigrid methods in the flame simulation,
in which the converged coarse grid correction is not in the
convergence domain of the fine grid Newton iteration.

This project requires both symbolic and numerical computation
techniques. The successful development of a useful symbolic
computation procedure will greatly promote the awareness and use of
symbolic computation packages in numerical computation community.
The results of this research project will make important contribution
to the understanding of geometric multigrid solution of convection
diffusion problems, and of the applications of high order compact
schemes to realistic flow simulations. Efficient solution of such
problems is central to many numerical simulations in computational
fluid dynamics. The fast laminar diffusion flame code is useful in
combustion and environment protection. Certain U.S. industries related
to commercial burners, pollutant tracking, car and airplane
manufacturing, combustion, can benefit from this research.